Ab-Initio Calculation of Primakoff Production of Pseudoscalar Mesons

Understanding how the strong nuclear force shapes the structure of ordinary matter remains one of the deepest open questions in physics. The fundamental theory of the strong force predicts that certain symmetries play a crucial role in explaining how matter is built, and subtle violations of these symmetries at the quantum level offer a unique window into the fundamental organization of nature. The PrimEx experiment at Jefferson Lab probes these symmetry violations by measuring, with high precision, the lifetimes of short-lived subatomic particles using high-energy light beams directed at atomic nuclei. Extracting clean signals from these measurements requires separating the physics of interest from background processes introduced by the nuclear target which is a significant theoretical challenge. The PI will use state-of-the-art approaches, enhanced by modern machine-learning techniques, to model from first principles this nuclear background, enabling more precise tests of fundamental symmetry. A graduate student will be trained in nuclear theory and artificial intelligence computational methods as part of this work. The machine-learning computational tools developed will be transferable to other areas of nuclear and particle physics, including neutrino oscillation experiments such as the DUNE experiment.

The photoproduction of particles known as pseudoscalar mesons from nuclei — a process known as the Primakoff process — provides direct access to the radiative decay widths of these mesons, offering precision tests of quantum chromodynamics (QCD) symmetries. However, current extractions of these decay widths by the PrimEx experiment at Jefferson Lab are limited by theoretical uncertainties in modeling nuclear dynamics, which this project directly addresses. The team will compute photoproduction cross sections from first principles by integrating state-of-the-art ab-initio nuclear structure calculations with modern hadronic theory. The PI will employ Quantum Monte Carlo many-body methods to compute the nuclear response of the target nuclei, focusing on the Primakoff production from ¹²C, ⁴He, and ²H — the past, present, and future targets of the PrimEx experiment. To improve the efficiency and scalability of these calculations, machine-learning techniques will be integrated into the computational framework. Together, these advances will provide experimentalists with theoretically validated predictions, enabling more precise extractions of meson decay widths and sharper tests of QCD symmetry breaking.